Improvement of Nuclear Magnetic Resonance Laboratory Experiences

The Department of Chemistry is purchasing a 60-MHz Hitachi Model R-1500 FT-NMR to improve the undergraduate chemistry laboratory program by incorporating new or enhanced nuclear magnetic resonance laboratory experiences within the existing framework of the laboratory courses. The NMR spectrometer is suitable for teaching, routine analysis, and senior research applications. Increasingly complex laboratory utilization of the instrument is planned as the students progress from introductory organic chemistry to instrumental analysis and physical chemistry and finally to senior research applications. These laboratory experiences complement and supplement the students' past laboratory experiences.